Collaborative Research: Biophysical alteration of wetland geomorphology in response to rising sea level

Collaborative Research: Biophysical alteration of wetland geomorphology in
response to rising sea level

Our objective is to examine the evolution of networks of tidal creeks in salt marshes as
they respond to rising sea level. We have documented rapidly growing creeks, incising into the
marsh at 1-2 m per year, in coastal marshes throughout the South Atlantic Bight and in similar
environments worldwide. Understanding the mechanisms driving the evolution of these drainage
networks is crucial for predicting marsh responses to sea level rise under different conditions.
The study will examine the physics of tidal flows and sediment erosion, while also considering
the significant impact of marsh plants and animals (e.g. crabs) on these processes. Using a
combination of field measurements, mesocosm experiments, and numerical modeling, we will 1)
evaluate the physical mechanisms underlying sediment erosion in creeks, including variation in
flow speed and processes changing the strength of the marsh soils, 2) test the hypotheses that
crabs facilitate growth of creeks by loosening sediment through burrowing and removing
stabilizing vegetation; and that hydrological conditions at creek heads are preferred by crabs, and
3) develop a numerical model of creek evolution to test the importance of different parameters
such as vegetation type, faunal density, tidal range and sediment supply on the morphological
evolution of creeks. The model will help us to integrate our observations and generalize our
findings over a range of conditions.
Salt marshes provide valuable ecosystem services to humanity, but these productive habitats are
threatened globally by accelerating sea-level rise. Understanding the impact of sea-level rise on
the physical structure of a marsh is crucial to predicting both the response of marsh ecosystems
and the larger-scale morphological response of the coastline. The impact of increasing water
levels on marshes depends on complex feedbacks between physical and biological processes.
Initial studies of this issue focused on interactions between water depth and marsh elevation,
which affect sediment deposition and plant growth. Recently, increasing attention is being
directed towards the manner in which creek networks evolve as they respond to the larger
volume of water they must convey during each tidal cycle at higher sea levels. The evolution of
creek networks is a critical component of marsh response to sea-level rise, because creek
morphology affects the amount of water and sediment delivered to the marsh surface, and the
drainage of the marsh, and thus, the length of time the marsh is waterlogged. In turn, the flooding
and drainage of the marsh influences the health of plants and animals in this ecologically vital
environment. The ability of creek networks to respond to increasing sea levels depends, in part,
on how easy it is to erode the marsh surface, which depends on both sediment type, and on
stabilization or loosening associated with flora and fauna. Uncovering the linkages between
geology and biology will have bearing on the fields of geology, ecology and climatology, as well
as those interested in coastal protection and salt marsh evolution. The project will develop a new
modeling tool to examine response of marshes to sea-level rise, which will be broadly applicable
to many salt marshes in the U.S. and globally.